Mathematical Sciences: Global Qualitative Analysis of Ecological Models with Time Delays and Diffusions

The investigator undertakes studies aimed at gaining an understanding of the global qualitative behavior of solutions of some ecological models with delays or diffusions. These fall in three parts: (1) finite-dimensional systems of ordinary differential equations, (2) delay differential equations, and (3) diffusive systems with time delays. The principal themes of the research are the fundamental problems of finding various criteria for the uniform persistence of these considered systems, the global stability of steady states, and the existence of periodic solutions and spatial patterns. In particular, the investigator will study some mathematical models of populations dispersing among patches in heterogeneous environments, where various kind of interactions will be considered. For systems with more than two populations, one of the main objectives is to find concrete conditions under which all populations will coexist in the long term. For two-species interaction models, global stability of steady states, existence of periodic solutions or spatial patterns will be main concerns. Time delays and space variations constitute integral components of most ecological, biological, physiological, chemical, physical, economic and atmospheric processes. The planet as a habitat of mankind and other species has become too small to support an extravagant exploitation of its resources. The damages are inevitable and usually occur with time delays in heterogeneous environments; no experiments are possible to fully simulate these effects. In order to better understand and control such processes, it is thus necessary and important to study them mathematically. Unfortunately, current mathematical techniques are far from adequate to handle these numerous real problems. The proposed research will lead to an improved understanding of the dynamical interplay of the effects of time delays and diffusions. In particular, the final results can be useful to a wide spectrum of people like ecologists, engineers, system scientists and others who plan for a better management of the planet and life.